Wafer Prober and Control Electronics for CCD Testing

Abstract

This award will provide partial support for the purchase of a wafer probe test station, control computer, and associated electronics. These will allow the University of California Observatories, Lick Observatory (UCO/Lick) to continue its forefront development of CCD imaging detectors for astronomical research. This instrumentation will be available as a Santa Cruz campus resource for other faculty and students. It will be used in UCO/Lick programs with the University of California, Berkeley and Lawerence Berkeley National Laboratory as well as programs with University of California, Davis and several other institutions around the country.